Structure-Function Studies of Adenylosuccinate Synthetase

9316244 Honzatko The recent determination of the three-dimensional structure of the synthetase from E. coli reveals a folding topology of the polypeptide chain heretofore unobserved in any other protein structure. yet, the synthetase has residues which correspond to the GTP-binding residues of the p21ras protein. Given the high level of sequence similarity between synthetases from bacteria to mammals, the structure of the E. coli enzyme should provide a reasonable basis for understanding structure-function relationships of synthetases from a wide variety of species. Four different crystal forms of adenylosuccinate synthetase from E. coli are under investigation. Each of the crystal forms diffracts to a resolution of at least 2.8A. The four crystal forms will be used in the study of ligand-enzyme complexes by the method of X-ray diffraction. The X-ray diffraction studies will probe the conformational response of the synthetase to each substrate or substrate analogue individually and in combination. In addition to the diffraction studies, a series of directed mutations will be performed on the enzyme, in order to confirm the significance of specific residues in catalysis, substrate binding, and/or the structural integrity of the enzyme. The structure of a limited number of mutant synthetases will be determined, in order to better understand how structural changes give rise to the altered properties of the mutants. Each of the structures above will be refined, using HPCC facilities and state-of-the-art software. %%% The proposed investigations will reveal the structural basis for mechanisms of catalysis and inhibition of adenylosuccinate synthetase from Esherichia coli Adenylosuccinate synthetase governs the first committed step in the de novo synthesis of adenine nucleotides, converting the substrates Mg2+-GDP, and phosphate. Adenine nucleotides support many biochemical functions, perhaps the most important of which is the synthesis of proteins, RNA and DNA. ***